Microcomputer Project Laboratory Enhancement

This project will integrate the use of modern microcomputer system development tools into the undergraduate computer engineering curriculum. The equipment, which is to be placed in the microcomputer project laboratory, includes six IRM PC/AT-compatible personal computers, each equipped with computer-aided logic design and simulation software, programmable logic device development capability, and modern cross-development software which will allow students to use a high-level language (C) along with assembly language to develop software for laboratory projects. Six logic analyzers will also be added to the laboratory. These modern development tools are used extensively in the high-technology industry and government laboratories which are the primary employers of Wright State University's computer engineering graduates. Their integration into the computer engineering laboratory program will significantly enhance the value of WSU's program to the community and better prepare computer engineering graduates to be immediately productive in the jobs which they will enter upon graduation. The end result will be to promote the use of modern development tools in those companies which are not already using them, and to increase their effectiveness where they are already using them, and to increase their effectiveness where they are already being employed.